Phase Transitions in the Early Universe: Implications to Particle Physics and Cosmology

Theoretical research at the interface of elementary particle physics and cosmology will focus on how physical processes that took place early in the evolution of the Universe can help us understand both the fundamental structure of matter and its interactions, and the large-scale structure of the Universe. The methods to be used consist of analytical tools from theoretical particle physics and large-scale computer simulations of non-linear field theories, designed to model the dynamics of phase transitions and spontaneous symmetry breaking in an expanding Universe. Applications to the construction of models of particle interactions and to the impact of phase transitions on cosmology will be analyzed in detail. It is expected that the results obtained by this research activity will help clarify many of the complex issues that arise when one examines some of the fundamental problems of particle physics and cosmology, such as the excess of matter over antimatter in the Universe, as well as the origin of its rich large-scale structure.